Individual: Presidential Award for Mentoring

D. Allan Butterfield
University of Kentucky
HRD-9814744
Dr. Butterfield has built an excellent record producing doctoral and master's students, many of them women. He has managed to continue supporting students at all levels over the years and helped 20 students from Appalachia to pursue successful graduate work. Through his research projects, Dr. Butterfield affords many underrepresented undergraduates and graduate students the opportunity to experience groundbreaking laboratory research. Of Dr. Butterfield's many students, five females earned doctorates and eight earned master's. Four females are currently pursuing doctoral degrees and one is pursuing a master's degree.